Mathematical Sciences: Workshop on Bayesian Statistics in Science and Technology; September, l991, Pittsburgh, PA

This workshop will contribute to developments in both practical and theoretical statistics. Its contributions to practice will be dissemination of experience in applying Bayesian methods and the identification of specific theoretical and implementation tools that can aid in the convenient, routine use of Bayesian methods. It will contribute to theory by providing a collection of concrete, contextually grounded research problems in the light of which actual and potential theoretical developments can be examined. The workshop will be held in September, 1991 at Carnegie- Mellon University. It will include those who use and develop statistical theory and methods, and several applications will be presented in length, with a thematic focus on the contribution of the Bayesian theory of statistics. This conference has the potential for great impact in the field of statistics. Bringing together good statistical theory and computing power to solve a real problem is the direction of future research.